Midwest Probability Colloquium

9707019 Pinsky This award provides funds to partially support the Midwest Probability Colloquium. This meeting is held annually at Northwestern University during the month of October. The Principal Speaker gives a series of two connected lectures, while two Hour Speakers give one talk each. The colloquium serves also as a regular meeting ground for 75-100 probabilists from the greater midwest area, and allows graduate students and other young investigators a chance to interact scientifically with specialists of similar interests.